Second Integer Programming and Combinatorial Optimization Conference; Pittsburgh, PA; May 25-27, 1992

This is a grant to give partial support for the 2nd Conference on Integer Programming and Combinatorial Optimization in Pittsburgh, PA on May 25-27, 1992. Over the last ten years a great deal of progress has been made in this area. Many very important economic problems can be posed as Integer Programs. Continued breakthroughs in this area will be highly leveraged in terms of economic impact.